CAREER: anon.next: Privacy-Enabled Routing in the Next-Generation Internet

Overlay anonymity systems like Tor are effective against many kinds of attacks
on privacy, but they have significantly slower network performance than regular
Internet traffic. The purpose of this project is to explore the design of
anon.next, an anonymity system for the next-generation Internet. In anon.next,
we embed anonymizing proxies into new Internet architectures, so that the
network itself can provide efficient and effective privacy protection in a way
that overlay designs cannot. This project seeks to make major advances in two
areas key to the design of anon.next. First, methods to construct
high-throughput paths of anonymizing proxies to route the user's packets to
their destinations with minimal leakage of privacy. Second, secure methods to
locate those proxies without relying on centralized directory servers or
exposing the users' packet routes. Both components require us to develop new
metrics for the privacy provided by a given anonymizing path and by the system
as a whole. We are conducting analysis and simulation studies and validating
these with extensive experimentation on GENI testbeds. These efforts will
provide major insights into the design of anonymity systems, which provide
personal privacy as well as censorship resistance and protection for
whistle-blowers, journalists, and intelligence services. Our project is also
part of the large effort required to understand and design distributed systems
in the next-generation Internet. This project involves students at many levels,
including middle and high school students in summer camp settings,
undergraduate students in research into finding new attacks against our
systems, and graduate students.